Shipboard Scientific Support Equipment 2008

ABSTRACT

25 June 2008
Proposal Number: 0825670
Institution: Columbia University
PI: A. Walsh

The proposal requests six Shipboard Scientific Support items for Columbia University, Lamont Doherty Earth Observatory (LDEO); namely two (2) new RADAR’s, communication equipment for deck operations, a computerized stability program, and a new R/O water maker. Four (4) SCBA’s will be provided through group purchase. All items will either enhance safety or provide greatly improved support capabilities to science.

Broader Impacts: The R/V MARCUS LANGSETH supports federally funded scientific research throughout the world’s oceans and routinely exposes graduate and undergraduate students to seagoing oceanography. After completing trials, the R/V MARCUS LANGSETH began operations in 2008 with seven 3-D seismic cruises and is projected to sail even more extensively in 2009.